Project to Enhance Communication Among Engineering Design Professionals

This grant will enable the active coordination and participation of the IIE leadership for the Engineering Design Interest Group in the following NSF sponsored activities: 1. 1989 NSF Engineering Design Research Conference June 11-14, 1989, University of Massachusetts, Amherst. 2. 1989 International Conference on Engineering Design (ICED) and International Congress on Planning and Design Theory (ICPDT) activities, August 15-22, Harrogate, England. In addition to these activities, IIE Engineering Design Interest Group will hold at least two business meeting at the IIE Spring and Fall Conferences to be held in May at Toronto, Canada, and in November at Atlanta, Georgia, respectively, as well as participate in the programming of both IIE conferences. The scope of this new interest group is engineering design and design methodologies for product, process, systems and facility design, and the integration of designs, areas of primary interest to this NSF program and division.